CISE Postdoctoral Program: Ultrafast Multihop Transparent Opitcal Networks

9504056 Prucnal This is an award to Dr. Paul Prucnal to support Dr. Seung-Woo Seo as a postdoctoral associate. Dr. Seo will be working on ultrafast multihop transparent optical networks. ***